A Cooperative Research Program for Young Scholars

The focus of this program at the university of Southern Mississippi is to introduce young scholars to practicing scientists in research laboratory settings. Ten high school students will be brought together during the summer for an intensive, structured program which will combine scientific field, laboratory, and classroom experience. These young scholars will have an opportunity to nurture potential research skills, while working in laboratories with research mentors, as well as gain valuable knowledge in classes in computer usage, research methodology, and scientific writing skills. In addition there will be an opportunity to participate in field experiences and interact with scientists during evening seminars.